Workshop on Opportunities and Challenges in Crystallization Research to be Held at the Engineering Research Institute atIowa State University in November 1990

This project supports a 3-day workshop entitled "Opportunities and Challenges in Crystallization Research" to be held at the Engineering Research Institute at Iowa State University in November 1990. A great deal of progress has been made in the last three decades following the development of techniques for modeling crystal size distribution and relating the distribution to process design and crystallization kinetics. As a result of the analyses facilitated by these modeling techniques, much has been learned about the nature of crystal growth and nucleation in mixed suspensions such as those common in the process industries. The effects of the phenomena of secondary nucleation and growth dispersion and the effects of trace quantities of additives or impurities have been delineated. Progress has been made toward fundamental understanding of these phenomena. This past work has opened the door for additional research that has the potential to vastly increase knowledge about crystallization from solution. This workshop will assess this progress and determine the potential for future work to increase our understanding of this important phenomenon. The participants for this workshop are chosen from both industry and academia, and they will include the leading researchers involved in research and development of applications of crystallization from solution. A final report will be provided to the National Science Foundation. A summary of the findings will be submitted for publication.